III-COR: Collaborative Research: Graceful Evolution and Historical Queries in Information Systems -- a Unified Approach

III-COR: Collaborative Research: Graceful Evolution and Historical
Queries in Information Systems-- a Unified Approach

Database schema evolution is a constant in the life-cycle of
Information Systems (IS), and a source of major costs for maintenance,
upgrading, and service down time. The traditional process of
installing a new schema, converting the database, and rewriting
applications is slow and laborious. Instead, this project develops
the novel technology whereby the schema evolution problem is
reduced to coordinating mappings between multiple concurrent
versions of schema, applications, and database. The project's
approach consists of developing: (i) XML-based architectures for
unifying the management of evolving data and metadata, (ii)
methods for capturing evolution via schema mappings, (iii)
efficient mapping techniques for queries and applications. These
advances will enable the development of the MetaManager, a system
that supports: (a) preserving and querying database histories, and
(b) better planning on how-to evolve current schema versions, via
evaluation and testing of ``what-if'' scenarios. Its
functionality and performance are validated using various testbeds,
including the SDSC Storage Request Broker, which hosts scientific
data for research groups ranging from astrophysicists to
biologists.

This novel and timely approach provides a solution to both the
evolution and preservation of IS. Because of the
key role played by IS, a broad range of scientific, educational,
and economic activities will benefit. Project funds support
training of PhD students while undergraduate research interns are
trained on schema-evolution scenarios using the MetaManager. The
technology is a part of database design courses. Results are
disseminated via publications, reports and demos which are available from:

http://www.cs.ucr.edu/~tsotras/meta-manager
http://wis.cs.ucla.edu/projects/meta-manager
http://db.ucsd.edu/people/alin/meta-manager